CISE Research Instrumentation

A file server and workstation configuration will be provided for researchers at SUNY -Albany for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of (a) Experimental Study of Heuristics for Problems in the Design, Analysis and Testing of Computer Systems. (b) An implementation of Proof Techniques Employing Negation Normal Form (c) An Experimental System for String-Rewriting (d) Support Tools for Exploded Hierarchical Objects